SBIR Phase I: Novel Catalysts Based on Doped Carbon Nano-Fibers

This Small Business Innovation Research Phase I project is focused on development of
an economical process for production of nano-structured non-precious metal electrodes.
Currently, many electrode applications use precious metals that make the technologies
prohibitively expensive for wide-scale adoption. The materials being developed on this
project have unique properties compared to conventional materials used in electrodes,
and can be incorporated into a number of important applications. The materials are
based on carbon nano-fibers, a similar material to carbon nano-tubes. The unique
properties of these materials can be optimized by tuning particular features at the
nanometer scale. In this project, a scalable process (up to tonnage quantities) using low
cost starting materials will be developed for the production of these advanced materials
with high performance for target electrode applications. The production process will be
based on a unique patent-pending manufacturing route that allows the nano-structured
carbon to be produced more economically than conventional routes. The process
conditions will also be optimized to produce materials with the preferred properties for
target electrode applications. The project will result in demonstration of a material with
better performance than conventional electrodes that can be manufactured at a fraction
of the cost.

The broader impact/commercial potential of this project will be related to more efficient
forms of energy storage and usage. The strongest value proposition is for replacement
of precious metals for use in air electrodes used in applications ranging from fuel cells
and batteries, to industrial electrolysis. These applications are of particular interest since
an inexpensive and stable electrode material could allow significant efficiency
improvements to some of the largest sources of electricity consumption in the U.S.,
including energy storage for transportation, and chemical production. For example,
because of their superior energy density (an order of magnitude higher), metal air
batteries could potentially replace lithium ion batteries for use in electronic devices and
electric vehicles. Additionally, with stable low cost air electrodes, the electrochemical
production of chlorine (which consumes approximately 2% of electricity in the U.S.)
would be 30% more efficient. The materials developed in this project will cost
significantly less and last longer than current state-of-the-art materials, enabling their
wide-scale adoption. The less expensive electrode materials will consequently reduce
the cost of battery, fuel cell, and electrolysis technologies, ultimately enabling the
adoption of more efficient and higher performing means of energy storage and use.